Carbon Dioxide Content of Mesozoic and Cenozoic Atmospheres using Paleosols

The carbon isotopic composition of Cenozoic (8 to 56 Myr) paleosol carbonates is significantly different than Mesozoic paleosol carbonates, having C values of about - 10 to - 12 permil (118 samples) and -6 to -8 permil (21 samples), respectively. In this preliminary data set there is only one data point that overlaps. Consideration of the possible causes for this distinct differences leads to a possible difference in the concentration of atmospheric CO2 . If this is true it could lead to a method to estimate P(CO2) in the atmosphere to at least 200 Ma ago, greatly extending our knowledge of paleoatmospheric chemistry. So far, direct measurements of paleo-CO2 measurements go back only 0.16 Ma (Barnola, et al., 1987). The isotopic composition of soil carbonate records the isotopic composition of soil CO2 which is directly related to the concentration of CO2 in the atmosphere. For modern soils the atmospheric contribution to total soil CO2 is almost negligible. However, higher atmospheric P(CO2) levels make a significant difference in the isotopic composition of soil CO2 and hence, soil carbonate formed in equilibrium with soil CO2. In this study we examine the isotopic composition of paleosol carbonates from the Mesozoic and Cenozoic with the aim of determining P(CO2) of the ancient atmosphere. Preliminary results suggest that this is a viable approach and that Mesozoic CO2 levels were significantly higher than today, on the order of 1500 to 2500 ppmV.